Conference on Theoretical Aspects of Reasoning About Knowledge (Computer and Information Science)

This award provides partial support for an interdisciplinary conference on Reasoning About Knowledge. Reasoning about knowledge, which has long been of great interest to philosophers, has recently been recognized to be of importance to many other fields, including artificial intelligence, cryptography, distributed systems, economics, and linguistics. The conference will be held at Asilomar (Pacific Grove, California) on March 7-9, 1988. As the first meeting, the participants from several different disciplines will present recent developments in contributed papers and invited papers. The importance of this conference is its interdisciplinary scope and the contribution it makes to building a theoretical base for a wide variety of research in artificial intelligence and knowledge based systems.